Changes in Forearc Strain Partitioning with Increasing Obliquity of Convergence, Hikurangi Margin, North Island, New Zealand

Forearc deposits are commonly deformed soon after they are formed due to continuing convergence between plates, however, the style of deformation may vary depending on convergence angles and rates. Also most modern forearcs are largely submarine and are difficult to study. This project will focus on deformation of a Pliocene and Pleistocene forearc exposed on the east coast of North Island, New Zealand, an area experiencing active deformation and seismicity resulting from oblique convergence between the Pacific and Australian plates. The project will involve detailed geologic mapping, strain analysis of fault sets and investigation of Holocene fault and fold deformation in a region having a gradation of convergence angles. Results will increase understanding of both the structure and tectonic evolution of the area and will document strain partitioning in obliquely convergent margins. It will also provide information on possible changes in strain caused by increasing obliquity of convergence. Such information will be applicable in other modern examples of forearc deformation and in interpreting ancient forearc situations.